University of Arkansas at Little Rock Science Scholars (USS)

This project is developing a science scholarship program which is utilizing the existing institutional programs and support services to provide a significant foundation for the students. The project is increasing the enrollment of financially needy students in biology, chemistry and earth science. Recruitment efforts are wide reaching and include web-based advertisements as well as brochures, posters, personal contact, and other mechanisms used by existing programs such as McNair Scholars, TEAMS, TRIO and other Title III programs. Academic, social, and personal support will be provided for students in the form of a first year class, research opportunities through existing classes, a career planning course, brown bag luncheons, field trips and the like. The broader impacts of this project are felt through the goal of increasing the number of scientifically trained employees for the state of Arkansas and the country.